Purchase of a 500 MHz NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. This award, co-supported by the Chemical Instrumentation Program and the Biological Instrumentation Program, will help the Chemistry Department of the University of Hawaii, Manoa to acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include: 1) Structure Elucidation of Compounds from Marine Organisms with Immunomodulating or Antitumor Activity 2) Isomers of Vitamin A, Visual Pigments and Carotenoids 3) Amino Proton Resonances as Probes of Oligonucleotide Interactions and Helical Conformation 4) New Pharmaceuticals and Agrochemicals from Blue-green Algae and Marine Organisms that Harbor Algal Symbionts 5) Conformation of Biological Macromolecules 6) Marine Natural Products